Travel Support for Mobile Ad-hoc and Sensor Systems (MASS) 2005 Conference; November 7-10, 2005; Washington, DC

This grant is supporting travel for student authors to the MASS 2005 conference.

Recent research on wireless networks and mobile computing has concentrated on single-hop networks, where network nodes communicating directly to a fixed infrastructure such as cellular or satellite systems. In ad-hoc and sensor networks, multi-hop scenarios where network nodes communicate via other network nodes are dominant. The increasing importance of this area has led to the organization of the 2nd IEEE International Conference on Mobile Ad-hoc and Sensor Systems (MASS 2005). MASS 2005 will be held November 7-10, 2005 in Washington, DC. The meeting is sponsored by the IEEE Computer Society Technical Committee on Distributed Processing and Technical Committee on Simulation as well as the IEEE Communications Society.